Interactions, Dynamics, and Phase Transitions of Colloidal Suspensions

9320378 Grier Technical abstract: The experimental program addresses the physics of colloidal suspensions through a combination of digital video microscopy, optical trapping, and laser light scattering. Systems to be investigated include highly charged polystyrene microspheres and superparamagnetic ferrofluid emulsion droplets. Areas of particular interest include: (1) precision measurements of the interparticle potential; (2) analysis of structural and dynamical processes responsible for phase transitions in supercooled monodisperse colloidal suspensions; (3) analysis of phase transitions in bidisperse colloidal suspensions focusing on metastability of disordered solids; (4) effects of phase behavior of modulated substrate potentials simulated by optical interference patterns; (5) microscopic kinetics of phase transitions in quenced single-layer ferrofluid emulsions. Non-technical abstract: The experimental program examines colloidal suspensions on three levels: (1) as distinct states of matter; (2) as easily studied analogs for conventional materials and (3) for their self-ordering properties which hold promise for nanofabrication, nonlinear optics, and other advanced applications. Anticipated practical benefits include (1) a method for determining the microscale interactions in commercial colloidal suspensions; (2) improved understanding of the "atomic"-scale processes responsible for phase transitions, particularly in the technologically important case of rapid solidification; and (3) improved understanding of the microscopic structure, dynamics, and phase transitions of binary alloy systems. ***